CLEANER: Collaborative Research: Cyberinfrastructure Needs for a Model Environmental Field Facility in Baltimore, Maryland as Part of an Engineering Analysis Network

0414204 Piasecki The goal of this project is to use an existing field site that is funded by the NSF as part of the LTER network located in Baltimore, MD, to assess it as a prototype environmental field facility (EFF) located in Baltimore. This project is a collaborative effort between Drexel University and University Maryland, Baltimore County.